Research in Low Energy Nuclear Physics

Research in Low Energy Nuclear Physics A broadly based program is proposed to study properties of nuclei and atoms using the Stony Brook superconducting linac as well as state of the art facilities available elsewhere such as Gammasphere. The program emphasizes frontier issues in nuclear structure physics (smooth band termination, physics near the proton drip line near A=3D100, M1 excitations, superdeformed and other large deformation shapes in the A=3D80 region, and the competition between particle and gamma-ray emission at the limits of stability). Another venue of research utilizes the decay of giant resonances to study properties of nuclear matter (nuclear dissipation, superconducting-to-liquid drop phase transition, nu-clear compressibility as a function of temperature). Another component of the program proposes to continue preparations for a test of the electroweak interaction (parity non-conservation in Fr atoms). A more suitable Francium laboratory will be prepared in order to perform atomic physics measurements with great accuracy (Stark-induced 7s --> 8s transition and hyperfine anomaly measurements). The Stony Brook Nuclear Structure Laboratory also serves as a focus of many educational activities. Students at the high school, undergraduate, graduate, and postdoctoral levels participate in the research program with various intensities, from beam line construction to running actual experiments.